Algebraic Geometry Inspired by Physics

Three projects in the theory of moduli in algebraic geometry
are addressed in this proposal. The recent considerable influence of
string theory on algebraic geometry has led to the introduction of
new moduli spaces to study, new techniques for studying them, and
interesting ``quantum'' invariants defined in terms of them.
This proposal is inspired by the physics, but remains firmly grounded
in algebraic geometry.

Moduli spaces are spaces that parametrize geometric objects.
The first project deals with the spaces parametrizing
holomorphic maps from the Riemann sphere to a complex projective
manifold, and the ``Gromov-Witten'' invariants that can be
computed as integrals on such spaces. The second deals with
the spaces parametrizing holomorphic correspondences (i.e.
Riemann surfaces lying over the Riemann sphere together with
a holomorphic map to a complex projective manifold) as an
alternative source of Gromov-Witten invariants for Riemann surfaces
of positive genus. The last project is an investigation of
moduli spaces generalizing the spaces of holomorphic
vector bundles on an algebraic surface.